Destruction of Chaos and Detection of Order in Multi-dimensional Dynamical Systems

9971760
Meiss

The principal investigator proposes to study the destruction of chaos and
the concurrent creation of structures (such as stable orbits and tori) in
multi-dimensional (three or more dimensions) volume-preserving and
symplectic maps. Both analytical and computational techniques will be
employed. One approach is based on the "anti-integrable" (AI) limit,
introduced by Aubry in 1992. This principle yields analytical bounds for
the existence of chaotic dynamics, as well as an efficient numerical
technique for continuation of families of periodic orbits. By extrapolation
one can also follow quasiperiodic and heteroclinic orbits as well. The
destruction of chaos is signaled by the first bifurcations in the system and
the creation of order by the bifurcations that create stable orbits and tori. A
second project is to classify the heteroclinic orbits and their bifurcations
for a multi-dimensional version of the quadratic Henon map.
Classification will be given through construction of "primary intersection
manifolds," and by determining their homology on the "fundamental
annuli." A topological classification of structures in dynamical systems is
important both in the analysis of data, and in the interpretation of
numerical experiments. It is well known that chaotic systems often have
fractal invariant sets with various topological properties. These will be
studied in this proposal through the "disconnectedness" and "discreteness"
of compact sets. The PI will develop techniques for computational
homology, yielding a definition for "lacunarity" and computational
methods for Betti numbers of resolution dependent approximations to
these sets.